Wave Turbulence in Atmospheric and Oceanic Flows

Smith
0071937
The investigator studies the mechanisms responsible for the
generation of slow, large-scale motions from fast, small-scale
motions in stratified turbulence and rotating, stratified
turbulence. Because the earth's atmosphere and oceans are
stratified fluids in a rotating frame, the work is highly
relevant to geophysical applications. Many aspects of
wave-turbulence interactions are yet to be understood. For
example, it is not clear if, when and how small-scale 3D
turbulence in the presence of waves can organize into large-scale
coherent structures (as in 2D flows). In purely rotating flow,
the investigator previously showed that white-noise forcing at
small scales leads to the generation of slow, large-scale,
cyclonic vortical columns, if the Rossby number is below a
critical value of order one. This is surprising because recent
work using multiple scales analysis shows, at first order,
decoupling between fast, small-scale motions and slow,
large-scale motions for a variety of wave-turbulence systems
including rotating flow. Several second-order mechanisms may be
responsible for the upscale energy transfer to slow modes in
rotating turbulence. This project goes a step further towards
understanding the large-scale dynamics in geophysical flows, by
investigation of upscale energy transfer in 3D stratified and
rotating, stratified turbulence. The investigator explores the
necessary conditions leading to such upscale transfer and seeks
to identify the underlying mechanisms. Simplified systems of
dispersive wave turbulence are used to test understanding and for
the development of statistical models. To complement numerical
simulations and analysis, she has also planned laboratory
experiments in a rotating tank, where the turbulence is driven by
differentially-rotating, rough top and bottom plates.
Over relatively short time periods in rotating and/or
stratified flows, there is both experimental evidence and
mathematical support for the decoupling of slow, large-scale
motions from fast, small-scale motions. This means that, on time
scales of perhaps days in the atmosphere and weeks in the oceans,
large-scale eddies and currents evolve independently from
small-scale turbulence. Another implication is that short-term
climate change is independent from rapid fluctuations of the
conditions in the atmosphere and oceans. Our numerical
simulations for longer times, however, show the generation of
large-scale, coherent structures from small-scale turbulence, and
this coupling may be important for long-term weather prediction,
ocean circulaton and climate change. In the context of the
atmosphere, one might ask, can small-scale cumulus convection at
length scales of about ten kilometers generate large-scale eddies
of several thousand kilometers in extent? The transfer of energy
from fast, small-scale motions to slow, large-scale motions in
three-dimensional, wave-turbulence systems such as rotating and
stratified flows has only recently been discovered, even though
such transfer has been studied for decades in two-dimensional
flows. The present study involves numerical simulations, modeling
and analysis, and laboratory experiments in a rotating tank. The
goals are to deepen our understanding and improve our capability
to predict geophysical phenomena.